HPNC: Internet2 Connection for the University of Massachusetts Dartmouth's School for Marine Science and Technology

The proposal plans to connect SMAST (School for Marine Science and Technology) directly to the Northern Crossroads GigaPoP in Boston and then to the Abilene Network in support of the following research and education activities

Become a major supplier and clearinghouse for distributed data and information related to its programs in ocean environmental observation/modeling and fisheries oceanography and management research. C
Collaborate more effectively with its Harvard University colleagues on the development of data assimilation modeling system.
Become more actively engaged in the real-time exchange of large observational and model data that accompanies our joint development of an Advanced Fisheries Management Information System (AFMIS).
Collaborate more effectively with colleagues in (1) large eddy simulation modeling of coastal winter-mixed layer evolution and (2) direct numerical simulation of ocean physical-biological systems on a remote supercomputer.
Collaborate more effectively in its GLOBEC/Georges Bank studies on the relation of satellite-derived temperature fields and biology.
The establishment of an ACCESS GRID node would establish reliable support for distributed (remote) research and education collaborations.
Provide IGS/SMAST researchers and students with high-speed access to the virtual libraries that are being built to augment traditional libraries.
Begin employing advanced visualization technology to analyze and synthesize results